Microwave, Antennas and Electromagnetics Laboratory Equipment Request

The major objectives of this program are to introduce modern instruments to improve undergraduate instruction and to interface computers with scientific instrumentation for design and measurements. Modern solid-state sources, frequency sweepers and amplifiers will be used to replace the obsolete and unreliable vacuum tubes. Equipment with digital input/output will be used to interface with the micro- computers and computer-aided design (CAD) and computer-aided manufacturing (CAM) techniques will be emphasized in circuit and device design. Circuit testing will be done by automatic measurement methods which will be introduced for accurate and fast data acquisition. The recent advances of microstrip integrated circuits and solid-state devices will be emphasized. To accomplish the goal of educating future engineers with fundamental and modern knowledge, microwave integrated circuit workstation equipment is needed. This equipment consists of 5 circuit design stations, 1 circuit fabrication station, 2 circuit assembly stations, 1 antenna test station, and 5 circuit test stations. The five circuit test stations and the antenna test station will also be used to conduct experiments for other conventional waveguide and coaxial components. The experiments and projects are designed to prepare the students by providing them with a modern working knowledge of the equipment and design methods used in the microwave, antennas, electromagnetics, optics and high frequency solid-state device areas.